NSF/EPA TSE: Novel Compressed Solvent Extraction Processes for Enhanced Biomass Conversion by Thermophilic Bacteria

The overall goal of the proposed work is to demonstrate the
feasibility of extractive fermentation of volatile products using
a compressed or supercritical solvent. The project will focus on
the efficient continuous recovery of ethanol from biomass
fermentation by the fibrolytic thermophilic bacteria, Clostridium
thermocellum. This organism is capable of producing considerable
amounts of ethanol directly from fibrous biomass, but is inhibited
by the presence of relatively dilute ethanol. The Principal
Invertigators' (PIs) hypthesis is that a compressed solvent is
capable of efficiently extracting product so as to reduce product
inhibition and thereby increase the fermentation rate and yield.
Supercritical fluid extractive fermentation would have the
advantages of gas-like mass transfer properties, solvent strength
tunability, and ease of solvent regeneration and product recovery
through depressurization. The specific objectives are to: (i)
characterize effects of compressed solvents on the growth and
metabolism of Clostridium thermocellum in the presence of soluble
and insoluble carbohydrates; (ii) demonstrate in situ ethanol
removal using a compressed fluid and evaluate the metabolic
activity of Clostridium thermocellum as a function of extraction
conditions; and (iii) develop a mathematicl model which will
facilitate the design and analysis of compressed extractive
fermentation processes. This award is made by NSF as part of
the joint NSF/EPA Program on Technologies for a Sustainable
Environment.